GOALI: Dynamic Mixing in Stirred Vessels: An Application of Particle Tracking Velocimetry and Flow Visualization in a Convective Frame of Reference

CTS-9816135
R. Brodkey/Ohio State University

Stirred tanks (mixing vessels) represent a ubiquitous element in the chemical process industry. The complex flows created in these vessels renders their analysis and design enhancements a quite difficult task. This award will focus on the quantitative/visualization expertise of the PI on the task of identifying and improving these complex flow fields. It is expected that pollution prevention and enhanced competitiveness will derive from these efforts.